U.S.-Australia Workshop on Statistical Mechanics and Integrable Systems

9602542 McCoy Under this award, twelve American researchers will be brought together in a workshop with Australian physicists and mathematicians to exchange the most recent research developments and to establish the basis for future joint research in statistical mechanics and integrable systems. The workshop will be held near Brisbane immediately following the Congress of the International Association of Mathematical Physicists. The principal organizers of the workshop are Professor Barry McCoy of the State University of New York at Stony Brook and Professor Rodney Baxter of the Research School of Physical Sciences of the Australian National University.